SANDALS-TEAMS Summer at Notre Dame: Academic and LeadershipSkills - Technology, Engineering and Mathematics, Science

The College of Notre Dame of Maryland will initiate an 8-week, residential, Young Scholars project in the Life Sciences for 30 girls in grade 12. In SANDALS-TEAMS, students in Baltimore City public and private schools sample college life and engage in laboratory activities and research. Biotechnology is the theme of courses in microbiology, biochemistry, chemistry, mathematics, computer science, field/career experiences, and workshops in academic skills. Students work for three weeks in public or private research facilities, and apply scientific methodology to research a topic in biotechnology related to coursework. Participants earn $50/academic week, and $75/research week. A follow-up program provides academic and motivational reinforcement activities. SANDALS- TEAMS is a cooperative venture of the College of Notre Dame of Maryland and the Baltimore City Schools. There is a $25 application fee.